SBIR PHASE II: The Development of a Solid-State, Laser DiodeDriven Three-Dimensional Display Based on Two-Photon Upconversion

*** 9704036 Downing This Small Business Innovation Research Phase II project from 3D Technology Laboratories will produce the final detailed system design and materials optimization that are necessary to construct a laser diode driven, solid-state, three-dimensional display. A fully functional device will be integrated, tested, evaluated, and optimized within the duration of this proposal and, when complete, will be capable of displaying true 3D data sets from a variety of input sources. The device will offer real time capabilities, and it will be able to display both static and dynamic images. Objects drawn in the display will be accessible to viewers through all sides of the display, with no restricted or obstructed regions and with no need for special glasses or head gear. Potential commercial applications for this technology include medical imaging, computer-aided design and manufacturing, scientific visualization, air traffic control, geological and oceanic exploration, molecular modeling and computational chemistry, as well as education, entertainment, and general consumer electronics. ***